A Novel Combustion Synthesis of Refractory Materials

A novel, combustion synthesis approach to the continuous production of refractory nitride, carbide and other ceramics by the reactions of liquid sodium/potassium droplets in an atmosphere of gaseous metal halides (i.e. TiCl4, SiCl4) and nitrogen or carbon containing gases (i.e. N2, CCl4) is the subject of this proposal. A feasibility study has already led to the production of crystalline titanium nitride, titanium carbide and silicon carbide powders. The preliminary results have indicated that further investigation of this approach is required in order to explore its full synthesis capabilities. The focus will be on the use of free falling droplet experiments as a means of understanding the fundamental physical and chemical parameters controlling the synthesis of the ceramic material. A range of materials will be explored using suspendef single droplets in appropriate atmospheres. The key question to be answered is how pure a product can be formed under ideal, well-controlled conditions. Combustion synthesis has the potential for producing hard, high temperature resistant, chemically stable nitrides, carbides and other ceramics. This research will attempt to ascertain whether or not a continuous process using a liquid metal spray is an attractive alternative to batch methods for producing ceramic powders.